Seismic System for HLY0602 (Lawver)

Abstract
Chayes ARC 06-37107

This award supports the design, assembly, installation, operation of a multi-channel marine seismic system on the USCG Cutter Healy (WAGB-20) in support of an NSF funded field program "Integrated Geophysical and Geologic Investigation of the Crustal Structure of Western Canada Basin, Chukchi Borderland and Mendeleev
Ridge, Arctic Ocean", award number: 0327626 led by Lawrence Lawver (Principal
Investigator) Harm Van Avendonk (Co-Principal Investigator.) This program is scheduled to start at Barrow, AK on or about July 18, 2006 and end at Nome, AK on August 28, 2006.